Introduction of Fourier Transform Infrared Spectroscopy into the Chemistry Curriculum

Fourier Transform Infrared Spectroscopy is being introduced into the chemistry curriculum. The project centers on a modern FTIR spectrometer, FTIR accessories, and a dedicated microcomputer. The equipment is being used with old experiments as well as with new ones designed to illustrate modern infrared spectroscopy. Students from the introductory laboratory courses to the advanced, integrated laboratory courses and thesis research projects are using the FTIR instrument. It is likely that it will become the chemistry department's most heavily used spectrometer, replacing three unreliable vacuum-tube instruments. With the FTIR, students are able to characterize unknowns and synthesized materials faster and with greater confidence. Studies of "real world" samples are being facilitated as well as the investigation of reaction rates and molecular structure. Since FTIR methods are finding increased use in government, industrial and academic laboratories, students are better prepared to enter the workforce, graduate schools, and professional schools because of this project. The grantee is matching the award from non-Federal sources.